CIF: Small:Interference Engineering in Wireless Systems

Demands for wireless access to the Internet and voice communications
keep growing exponentially, while the available spectrum remains scarce.
As a result, cellular, WiFi, mesh, and cognitive networks are
increasingly interference-limited.

Despite significant efforts over the last decade, key aspects of the
interference are still not well understood. In particular, the spatial
and temporal correlation of the interference has been largely ignored,
despite its profound impact on the performance. With the proper
mathematical and numerical tools from stochastic geometry and spatial
statistics, the impact of protocol decisions on the interference as a
random field in space and time can be assessed, and, even more
importantly, the question of how to engineer the interference for
optimum performance can be addressed.

This project aims at taking a major step in this direction. It focuses
on developing a fundamental understanding of the structure of the
interference using a rigorous analytical approach. While the outcomes of
the project will be applicable to and relevant for most modern wireless
systems, they are particularly pertinent for cognitive systems, where
interference between primary and secondary users is not just a technical
problem leading to a performance reduction, but also a regulatory and
legal issue.